3-Manifolds

9803293
Oertel
Building on previous work, Ulrich Oertel will study the topology of
3-manifolds, using essential laminations and essential maps of surfaces.
The goals include generalizing results about Haken manifolds to manifolds
containing essential laminations or admitting essential maps of surfaces.
In addition, with Jacek Swiatkowski, Oertel will study contact structures,
confoliations, and contaminations in 3-manifolds. This may also lead to
results about the topology of 3-manifolds admitting appropriately restricted
(essential or tight) versions of these (partial) plane fields on the
3-manifolds. Another goal is to establish further connections between
contact structures and foliations and laminations in 3-manifolds. Finally,
Oertel will continue to study automorphisms of 3-manifolds, refining and
generalizing existing work that deals with the important case of
automorphisms of handlebodies and compression bodies. The goal here,
already partially achieved, is to classify automorphisms of 3-manifolds
up to isotopy, as in the Nielsen-Thurston classification of automorphisms
of surfaces.
A closed 3-manifold is a space that is locally like ordinary
3-dimensional space. Thus, understanding 3-manifolds amounts to
understanding all possible 3-dimensional universes. Especially since
humans live in a 3-dimensional space, one wishes to determine properties
of 3-manifolds, and ultimately, also to classify them. From the 1950's
to the 1970's, progress on 3-manifolds was based to a large degree on
methods using certain embedded surfaces, called incompressible surfaces.
From the 3-manifolds containing incompressible surfaces, one can, for
example, extract algebraic information sufficient to distinguish any two
of them. The investigator will use objects in 3-manifolds similar to
incompressible surfaces, namely essential laminations and essential maps
of surfaces, to explore the unknown territory further. There are other
structures on 3-manifolds, called contact structures, that have their
origins in geometry rather than topology. Work of Eliashberg and Thurston
has shown that contact structures are related, via confoliations, to
certain laminations called foliations. With Swiatkowski, the investigator
is finding further connections among an entire range of related objects:
contact structures, confoliations, foliations, laminations, and
contaminations, the last being a newly invented object. It is typical in
mathematics to study a space by studying suitable maps from the space to
itself. For 3-manifolds, one can consider maps called automorphisms or
self-diffeomorphisms. In continuing research, Oertel is classifying
automorphisms of 3-manifolds (up to isotopy). The work is revealing a
rich and interesting theory of the automorphisms of some of the simplest
3-manifolds.
***